U.S.-Hungary Cooperative Science Research in Cosmology

The primary objective of this US-Hungary Cooperative Science Research Project between Dr. David Schramm of the University of Chicago and Dr. Alex Szalay of Eotos University, Budapest is to continue the collaboration of US and Hungarian researchers working on problems in cosmology and high energy astrophysics. The observational and theoretical research relates to the formation and the statistical description of the structure of the universe and will be applied to problems in many areas such as Biased Galaxy Formation, Fluctuation Spectrum; Pencilbeam Redshift Surveys; Higher Order Correlations and Clusters of Galaxies; Particle Physics and Early Universe; and Gamma Ray Bursters and Gamma Ray Background. The results may provide information on new observations and by extraction from existing unique data. Methodology may be extended by the effort to develop models in which a structure such as a supercluster can be formed from first principles. This project in cosmology fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.